Collaborative Research: An Optimality Principle of Evaporation over the Land Surface

Eichinger
0309684
The working hypothesis of this research is that evaporation at the
earth-atmosphere interface is always maximized, given radiative energy input
in a particular environment. Under the hypothesis, evaporation is uniquely
determined as a result of an optimization exercise in terms of surface
temperature, surface soil moisture and sensible heat flux (a measure of
turbulent transport) given an energy input.

Intellectual Merits:

The ideas presented here will allow the independent verification of models,
will lead to improved parameterization of surface hydrology and, more
importantly, will provide a framework in which the sensitivity of land
evaporation to changes in radiation, earth surface properties etc. could be
evaluated independently of the traditional empirical models. The research
strategy includes: 1. further theoretical and empirical study to include
the dependence of long wave radiation on surface temperature; 2. show
the lack of sensitivity of evaporation to atmospheric moisture; 3. carry
out field work to test the concepts with more appropriate data sets over bare
soils; 4. investigate the validity of existing evaporation models; 5. initiate the
extension of the concepts to vegetated surfaces.

Broader Impacts:

This work represents a broad interdisciplinary collaboration between
hydrologists and ecologists with theoretical and experimental expertise. The
work supports unique experimental infrastructure at the University of Iowa.
Undergraduate students will have the opportunities to do theoretical and field
work. Several graduate students will get their masters/doctoral degrees based
on their work in this proposal. All students will be encouraged and financed
to present findings in professional meetings. All work will be published in
the refereed literature in a timely manner. This proposal is being submitted
under the umbrella of the new MIT Earth System Initiative. This research and
educational effort is intended to promote the understanding of the ``body
earth'' in order to define the appropriate science to develop sound
sustainability policies. The Principal Investigator is one of the leaders of
this initiative, a member of its executive council, and teaches one of the
require courses under the initiative's freshman core alternative program:
Terrascope.